Student Travel Grant Support for IEEE SECON 2013

By supporting graduate students to attend IEEE SECON 2013, this award will increase the dissemination
of the conference research results to a larger and a more diverse audience, which otherwise
would not have been able to attend. In so doing, this award will contribute to the strength
and inclusiveness of the research community, and will lead to the long-term health and vitalization
of SECON. In addition, by giving preference in grant awards to women and under-represented
students, it is hoped that it will increase the participation among these groups. By advertising to a wide
range of colleges and universities, participants from a more diverse set of institutions should
be able to attend and benefit from the conference. A broad and diverse population is key to
the health of the research community.

Conference attendance is a crucial part of the life of a researcher. By creating new opportunities
for students (especially those from under-represented groups) to attend a high-quality conference,
this project will benefit the research community in several ways. The students themselves
benefit from the opportunity to meet and interact with many other researchers in a favorable
setting, and from attending research presentations that may be related to their research areas.
The research community benefits from the improvement of the students in the pipeline, and
from the introduction of new researcher perspectives. Additionally, everybody benefits from
the increased diversity of participants attending the conference.